Phospholipase and Allosteric Modulation of GABA Receptor

Brain activity is the combined effect of excitatory and inhibitory nerve cells acting in concert. An imbalance of their activities can result in neurological problems such as stress, anxiety or even seizures. The major inhibitory system in the brain is composed of nerve cells which release a chemical signaling molecule, gamma- aminobutyric acid (GABA). This compound acts on other nerve cells by inhibiting their activity. Many drugs that are used as sedatives, anti-anxiety agents or anti-epileptics are thought to act by increasing the activity of the GABA inhibitory nerve cells. This research project will investigate the control of the GABA inhibitory system. There is some evidence that an enzyme, phospholipase A2, interferes with the proper function of the GABA system. This project will test whether the activation of this enzyme negatively influences the GABA inhibitory nerve cells. The results could provide insight into the factors contributing to stress, anxiety and seizures and help identify therapeutic approaches for the treatment of these ailments.